Multiple Window Coordinator for Visual Information Access in High Performance User Interface

9313971 Shneiderman This is a Small Grant for Exploratory Research to investigate the interactive operation of multiple windows where the sources of information are located and coordinated invarious windows, with the purpose of improving performance and reducing the number of errors and user frustration that might other wise occur in the handling of one window at a time. The methodology used in the development utilizes metrics, a taxonomy of tasks, and builds multiple-windows coordination prototypes using hierarchiacal browsers and advanced widgets. Usability tests are conducted with experienced computer users. This work should impact the classical and limiting use of independent overlapped window management strategies which have dominated and remained unchanged for the last decade.